Parabolic flows in geometry

The PI proposes to study various problems in the field of geometric partial
differential equations. For example, he would like to study the qualitative behavior of the Ricci flow on manifolds with positive isotropic
curvature. In particular, the PI would like to analyze what kinds of singularities can occur along the flow. In another project, the PI intends to study
the Yamabe problem on manifolds with boundary. The goal here is
to construct conformal metrics that have constant scalar curvature in
the interior and zero mean curvature along the boundary. The PI also intends
to study ancient solutions to the Yamabe flow on the n-dimensional
sphere. This question is motivated by a classification result, due to
Hamilton, Daskalopoulos, and Sesum, for ancient solutions to the Ricci
flow on the two-sphere.
This project is concerned with questions at the crossroads of analysis
and differential geometry. The use of analytical techniques in geometry
has been extremely successful in recent years. In particular, Hamilton's
Ricci flow plays a key role in Perelman's solution of the Poincare conjecture,
as well as in the proof of the Differentiable Sphere Theorem
by Richard Schoen and myself. The goal of the project is to gain a
better understanding of these geometric evolution equations, and their
qualitative properties.